Genetic Approaches to Yeast Golgi Function

Yeast provides an excellent system for the study of Golgi secretory function because of its tractability to genetic, molecular, biochemical, and cell biological analyses. This project focuses on the role of SEC14p, the protein gene product of the SEC14 gene identified previously as being required for normal yeast secretory activity. Prior work under NSF support has shown that SEC14p is a cytosolic protein, which somehow is required for export of proteins from the lumen of the Golgi. Also, extragenic suppressors of sec14-ts have been characterized. The long-term goal of the project is to understand, at the molecular level, how the secretory process functions. The specific aim of the proposed research is to identify and characterize the specific membrane compartment of the Golgi apparatus which is involved in the function of SEC14p. This study will involve enrichment of the compartment from temperature-sensitive sec14 mutants by biochemical means, and immuno-identification of these compartments using antibodies against various gene products known (from genetic analyses) to be involved in SEC14p function. The function of the Golgi in the secretory process is an important question relevant to several disciplines of the life sciences. These studies will make an important contribution to this area of research.